Acquisition of Molecular Modeling Workstations at Pomona College

9601866 Selassie Pomona College This award from the Academic Research Infrastructure (ARI) Program will assist the Department of Chemistry at Pomona College acquire computer workstations and attendant software packages. This equipment will enhance research in a number of areas including the following: (1) dynamical theory of reactive processes in pillared smectite clays and zeolites (2) intramolecular hydrogen bonding in DMSO solution (3) 3D-QSAR studies of receptor-ligand interactions (4) enzymatic reactions in non-aqueous solutions, and (5) re-analysis of quantitative structure-activity relationships using comparative molecular field analysis (CoMFA). A network of fast, modern computer workstations is a new way to satisfy the computing needs of chemistry departments. Such a "computer network" also serves as a development environment for new theoretical codes and algorithms, provides state-of-art graphics and visualization facilities, and supports research in state-of-the-art applications of parallel processing.